SBIR Phase I: Cilk++

This Small Business Innovation Research (SBIR) Phase I research project proposes a solution to the challenges of the effective software programming of multi-core processor architectures. These architectures will become increasing prevalent in the near term, and a solution that would allow increased programmer productivity in implementing higher-performance software applications to utilize multi-core processor architectures is extremely desirable. The proposed work involves extending the C-based software language extensions in Cilk to C++.

The broader impacts include the development of applications which more effectively utilizes the computational power of multi-core processor architectures and enhanced productivity of software developers. The successful technical execution of this project and the follow up commercial development of this project would impact a broad range of application domains. Education and professional development would also be positively assisted.